Acquisition of a Stable Isotope Mass Spectrometer for Ocean and Earth Science Research

0115958
Popp
This Major Research Instrumentation award to University of Hawaii Manoa will provide support for acquisition of an isotope-ratio monitoring gas chromatograph/mass spectrometer system and related instrumentation for researchers at the School of Ocean and Earth Science and Technology. It is expected that the new instrumentation will foster interdisciplinary approaches to a broad range of problems in isotopic research in marine chemistry, geology and biology, and related environmental sciences. University of Hawaii will contribute cost-sharing of more than 33% of the cost of this project from non-federal funds.
***